Algebraic aspects of modern coding theory

This project concerns the class of Low Density Parity Check (LDPC)
codes. LDPC codes come equipped with an iterative message-passing
algorithm which operates on a certain bipartite graph associated to
the code. The algorithm acts locally on the graph, and this results
in both its greatest strength (low complexity) and its greatest
weakness (nonoptimality). The PI's focus is on understanding this
weakness. Because the algorithm acts locally, it cannot distinguish
if it is acting on the graph itself or on some finite unramified cover
of the graph. This leads to the notion of "pseudo-codewords", which
arise from codewords in codes corresponding to the covers and which
compromise the decoder. Thus to understand the performance of LDPC
codes, we must understand these pseudo-codewords; most of the problems
the PI considers stem from the desire to understand pseudo-codewords
of LDPC codes. In previous joint work, the PI has given two
characterizations of the pseudo-codewords of an LDPC code: via the
so-called "fundamental cone" and via the edge zeta function of a
certain graph attached to the code. While the fundamental cone
characterization is valid for all LDPC codes, the zeta function
characterization is satisfactory only in the special case of cycle
codes. The PI will further her study of the fundamental cone and the
development of a zeta function characterization for pseudo-codewords
of general LDPC codes. Additional targets of study are non-binary
LDPC codes and their pseudo-codewords as well as the connections
between LDPC codes and another class of graph-based codes: turbo
codes.

Whenever information is transmitted across a channel, errors are bound
to occur. By adding redundancy to the data, many of these errors can
be corrected. If the information is thought of as strings 0's and 1's
of fixed length, then the codewords are strings of 0's and 1's of
length some longer length, where the difference in lengths represents
the amount of redundancy which was added. A collection of codewords
is called a code. A large part of classical coding theory is
concerned with finding the trade-offs between three fundamental
parameters of a code: its length, its number of codewords, and its
minimum Hamming distance, i.e., the minimum number of positions in
which any two distinct codewords differ. While any code can correct
all errors of weight at most rougly half its minimum distance, most
codes can correct many errors of substantially higher weight. It is
the goal of modern coding theory to find those representations of
codes that admit decoding algorithms that allow for correction of all
the error patterns that the code can correct --- not only those which
have weight at most roughly half the minimum distance. One of the
greatest achievements of modern coding theory so far is the discovery
and subsequent development of the class of Low Density Parity Check
(LDPC) codes. The usefulness of these codes stems from the fact that
they come equipped with a very efficient decoding algorithm which
operates on a certain bipartite graph associated to the code. The
main goal of this project is to further the understanding of the
theoretical performance of this decoding algorithm, especially through
the study of the so-called "pseudo-codewords" which arise from codes
associated to finite covers of the bipartite graph.